I/UCRC Collaborative Study ("Tie Project") of Surfaces and Biological Interactions

9320057 Baier This "TIE" project funds a research project to be performed jointly by Case Western Reserve University's Industry/University Cooperative Research Center for Applied Polymers Research and the State University of New York at Buffalo's Industry/University Cooperative Research Center for Biosurfaces. This project is a collaborative study of surface interactions that will lead to an elucidation of relationships between biomaterial surface properties and blood protein and monocyte/macrophage adhesion and activation. The Industry/University Cooperative Research Center for Applied Polymers will be responsible for the biological characterization both before and following protein adsorption. The Industry/University Cooperative Research Center for Biosurfaces will be responsible for surface characterization both before and following protein adsorption and cell adhesion. The researchers are very well qualified to perform this joint project. The Program Manager recommends the State University of New York at Buffalo be awarded $25,000 for the first year of a two-year continuing award.